Early-Concept Grant for Exporatory Research (EAGER): Supporting STEM education by networking DRL resource networks: DRLNET

The Division of Research on Learning in Formal and Informal Settings (DRL) has funded five resource centers/networks to provide support to five DRL programs, to the PIs connected to those programs, and to STEM education communities. (They are Center for Advancement of Informal Science Education--ISE; Center for Advancing Research and Communication in Science, Technology, Engineering, and Mathematics--REESE; Community for Advancing Discovery Research in Education--DR-K12; ITEST Learning Resource Center--ITEST; Learning and Youth Research and Evaluation Center--AYS.) While the activities of each vary, all conduct reviews of the portfolio, provide technical assistance to projects, and communicate results of project findings or resources to a broader field.

This EAGER project supports exploratory cross-network collaboration around accumulating, synthesizing, and communicating evidence generated by the funded projects and the networks. Specifically, the project enables sharing of data across programs; creating an online presence across the networks; collaborating to provide assistance to projects; and sharing expertise to improve network evaluations. The project will enhance infrastructure to support STEM education, learning, and education research and will expand dissemination of evidence generated by DRL projects and programs. The resulting increased coherence and the identification of productive areas of collaboration should enrich the STEM education field.